Consolidated Math-Science Curriculum for Elementary Teachers

The University of Wisconsin--Milwaukee will develop an innovative program for the science and mathematics preparation of elementary teachers entitled "Consolidated Math-Science Curriculum for Elementary Teachers." The science content core will consist of a series of twelve one- credit minicourses which will cover the basic science needed for elementary teaching and a one-credit/Science/Technology Society capstone course. The mathematics core will consist of a new two-semester sequence guided by the NCTM standards. Both the mathematics and science courses will utilize manipulatives and laboratory work and will emphasize inquiry oriented and activity based learning. The mathematics and science methods courses will be coordinated with the content courses. Faculty from mathematics and the sciences will collaborate with faculty from the school of education in establishing and evaluating the program. The University of Wisconsin--Milwaukee is one of the Project 30 institutions, a three-year project to redesign teacher education curricula. The Center for Teacher Education at UWM has been designated as a Center for Excellence in the UW system, and the Center has forged strong ties with the Milwaukee business and education community for the recruitment of minorities and the promotion of science and math education and literacy in the Milwaukee public schools. The university's cost sharing will be 39% of NSF's contribution.